Thermochemistry and Structure of Metal-Ligand Bonds and Protonated Peptides

Professor Peter B. Armentrout and his group at the University of Utah is investigating kinetic energy dependent ion-neutral reactions to measure accurate, absolute thermochemical data needed for detailed analysis of periodic properties, electronic effects, fragmentation processes, and for providing benchmarks for theory on the conformations of gas-phase biomolecular ions. These studies will use guided ion beam tandem mass spectrometry coupled with electrospray, flow tube, inductively coupled plasma, and ion mobility sources to investigate reactions of diverse thermalized ions with a wide range of neutral reagents over a four order of magnitude range in kinetic energies. Professor Armentrout will investigate angular momentum effects in threshold collision-induced dissociation (TCID), state-specific chemistry of transition metal cations (TM+) to quantitatively evaluate spin-orbit coupling (SOC) effects, measure energetics for decomposition of different conformers of protonated peptides and determine structures of biological systems using infrared multiple photon dissociation (IRMPD) action spectroscopy. These studies would advance the fundamental understanding of SOC relevant to quantum science and of peptide degradation processes, especially for conformation-specific energetics. In addition to these scientific outcomes, the work will further the education of graduate and undergraduate students, contributing to an informed STEM workforce.

Examination of the CID of isotopically labeled complexes will enable an assessment of angular momentum effects. A SLIM (structures for lossless ion manipulation) device will enable enhanced ion mobility separation of electronic states of TM+ as well as conformations of biological molecules. The former will permit the study of state-specific chemistry, allowing a more quantitative assessment of SOC effects. These studies will be facilitated by a recently developed inductively coupled plasma (ICP) ion source that should produce excited electronic states in abundance. For biological molecules, the planned studies will provide quantitative measurements of the absolute difference in energy of different conformations, information needed to assess the accuracy of computations. Included in these systems will be peptides containing asparagine or glutamine, which both deamidate readily, molecular processes that have been linked to aging and neurodegenerative diseases. These energetic studies of biological systems will be complemented by the use of IRMPD spectroscopy to determine structures. Both experimental approaches will be applied to study molecules formed when TM+ activates CH bonds. Although primarily experimental, the work will include synergistic theoretical calculations. Potentially transformative studies include quantitative characterization of electronic state reactivity including SOC and benchmark measurements of the absolute energy differences between conformations.